Electrical Power Control Laboratory

9452120 Laursen This project introduces programmable logic controllers (PLC) into the electrical power curriculum and provides PLC training for electronic technicians and maintenance electricians in local industry. The project targets present engineering technology students in the associate degree program and workers returning for continuing education, specifically on the PLC. The laboratory environment includes new PLC hardware, PC's, programming software and simulation software.